Mathematical Sciences: Growth Curve Marginal Models

Marginal Models refer to models built on the structure of generalized linear models, but extended beyond the Gaussian case to a wide class of distributions for discrete or continuous- valued variables. This project will extend these models to growth curve models with particular emphasis on discrete data. Implementation of software, particularly for modest computing support will be undertaken as part of this project. When individuals are observed over a period of time, the objective of the data analysis is usually both to examine the pattern of change for the individuals and to examine the commonalities of these patterns among individuals. Often this leads to distinctions among groups of individuals or to associating features of these patterns with particular attributes of the groups. This research will develop statistical procedures for this kind of analysis.